Industry/University Cooperative Research Center for Software Engineering Fellowship

An Industry/University Fellowship award will assist with the conduct of collaborative research at the Laboratory for Telecommunications Research in Telcordia Technologies. Telcordia is an industrial affiliate of the NSF Industry/University Cooperative Research Center for Software Engineering Research (SERC). The PI is currently a professor at Purdue and a former site director of SERC. The general are of research deals with reliable operation of next generation systems. A next generation system is a collection of distributed components intended to work in harmony with the objective of providing services to authorized customers in an efficient, secure, safe, and reliable manner.